Purchase of Lambda Plus AI Machine

This project procures equipment to support research in three areas. These include expert system development for the synthesis of mechanical systems, development of a practical design methodology for variable structure controllers, and development of artificial intelligence (AI) systems for analyzing the strength of riveted joints. The equipment is an artificial intelligence machine, LAMBDA PLUS. For the synthesis research, the AI machine enables the development of an expert system for synthesis of systems comprising linkages, cams, gears, belt pulleys, and other similar components. The second project uses the AI system's symbolic manipulation capability to build variable structure control systems, which as the name implies are systems capable of switching from one control structure to another when directed by internal logic. For the third project, the AI equipment will enable inclusion in the design process of all of the major issues associated with riveted joint failure (i.e., fastener tearout, installation processes, corrosion effects, etc.).